Connections to NSFNET: Development of a Wide Area Prototype Connectivity Infrastructure

Abstract University of Illinois - Chicago - K. DahlenID,u Connection to NSFNET Proposal No. NCR-9317686 The University of Illinois at Chicago (UIC) needs to significantly expand its intra-campus connections to resources available through the NSFNET. At the same time, the University needs to provide a means of integrating Internet resources and networked connectivity into its existing information services. An integral part of this plan is to educate nursing students, educators, researchers, and practitioners to the advantages of campus and Internet resources by promoting access and networked connectivity and mechanisms for improving communication, increasing information access, and for sharing knowledge. The long-term goal is to extend this prototype to the other health professional schools and to the campus as a whole. The main objectives are: to streamline library operations and connectivity; to improve patron service; to develop new forms of collaboration and knowledge-sharing among nursing practitioners in the field; and to test educational strategies to integrate Internet resources into both the curriculum and practice of nursing.